Development of an Interdisciplinary Arkansas Emulation Laboratory

This project, facilitating the development and execution of complex software applications (such as the seamless, fault-tolerant integration of wired and wireless health care networks), proposes the development of an Arkansas Intelligent Coordinating Entities Emulab at the University of Arkansas at Little Rock. The emergence of new large-scale application domains combined with new distributed computing scenarios such as ad-hoc, mobile, peer-to-peer, and pervasive computing techniques motivate the need for novel approaches to support complex software applications. In critical situations, embedded hardware and software elements in the applications are resource-constrained and power limited devices. Effective coordination of these distributed elements is often contextual, and often strictly related to the environment in which they reside. However, dynamically changing group structures and environments require a configurable, flexible, scalable, and easy to use computing environment that supports composition and dynamics of free-ranging aggregates. The lab permits quick set-up of experiments that scale with minimal effort and are repeatable under different parameters. Emulab offers the flexibility to change parameters and network scenarios, allowing repeatability. Supporting research activities that include health-related projects, the infrastructure enables common net-centric research training and industrial collaboration. The project addresses the following problems:

-Intelligent Communication and Coordination of Sensor Networks;
-Implantable Antennas,
-Advanced Bio-Electromagnetic Modeling and Simulations and Telecommunications Applied to Wireless E-Health Technologies;
-Ultra Low Power UHF Wireless Subdural Electroencephalogram Electrode;
-Modeling and Simulation of Access Point Coverage and Capacity;
-Real Time Data Compression Applied to Advanced Electromagnetic Modeling and Telecommunications;
-Developing Dynamic Distributed Applications Using Adaptive Middleware Disaster Engineering